Fourteenth International Conference on the Application of Accelerators in Research and Industry to be held in Denton, Texas, November 6-9, 1996

The Fourteenth International Conference on the Application of Accelerators in Research and Industry will be held in Denton, Texas, 6-9 November, 1996. The purpose of the conference is to review current research and the wealth of industrial applications that are in progress with accelerators throughout the world. Two symposia, the Research Symposium and the Industrial Applications of Accelerators, will run in parallel, with sessions of general interest held in common. It is anticipated that over 500 papers will be given at these symposia. Invited contributions which are submitted for review, and approved, will be published as an issue of Nuclear Instruments and Methods in Physics Research.